Training and Research in Ecology and Evolution

Annual scholarships of $10,000 are being provided to academically talented, financially needy students pursuing a Masters of Science degree in environmental science, ecology or evolutionary biology. The scholarships are renewable for a second year. During the project period it is anticipated that 29 students will receive a total of 53 years of support. In addition to the scholarships, students are eligible to receive a $7,200 per year graduate assistantship. The combination of scholarships and assistantships is meeting over 82% of the Cost of Attendance for state residents and 59% of the cost for non-residents. The scholarship program is helping to increase the number of underrepresented minorities and women earning graduate degrees in the targeted majors.